Student Travel Support for IEEE Symposium on Security and Privacy 2013

The IEEE Symposium on Security and Privacy will be held in San Francisco, CA on May 19-22, 2013. Since 1980, the IEEE Symposium on Security and Privacy has been the premier forum for the presentation of developments in computer security and electronic privacy, and for bringing together researchers and practitioners in the field. This proposal requests funding to assist 15-20 US-based graduate students in attending this meeting. Participation in symposia like this is an extremely important part of the graduate school experience, providing the opportunity to interact with more senior researchers and to be exposed to leading edge work in the field. This grant enables the participation of students who would otherwise be unable to attend the IEEE Symposium on Security and Privacy.